Undergraduate Instrumentation and Design Computer Workstations.

The goal of this project is to provide electrical engineering undergraduate students with a unique, low cost and modern approach to laboratory instrumentation, circuit and system design. A prototype computer workstation has been created that allows the students to quickly access hardware and software programs so they can do both analysis and design of circuits and systems. The equipment to be purchased will extend the capabilities of the workstations and provide an adequate number to service the entire electrical engineering curriculum. A/D and D/A converters and software added to the personal computers will allow real time digital control, data acquisition and signal processing. Digital scope interfaces will make the computer a storage scope and will allow signal analysis via computer programs. A logic interface turns the personal computer into a powerful, menu driven logic analyzer. With powerful software design tools and interface hardware the students can design, simulate, and test circuits and systems from the computer workstation.